Mathematical Sciences: A Research Group in Representation Theory

This award to Professors Lipsman, Adams, Herb, Kudla, Li, Rosenberg is made under the Mathematical Sciences Research Group initiative. It will support postdocs, graduate students, and visitors in a series of collaborative projects in representation theory. Specific topics include theta correspondence, dual pairs, and applications to automorphic forms. The research will deal with various aspects of the representation theory of Lie groups. Lie groups, named in honor of the Norwegian mathematician Sophus Lie, has been one of the major themes in twentieth century mathematics. As the mathematical vehicle for exploiting the symmetries inherent in a system, the representation theory of Lie groups has had a profound impact upon mathematics itself, particularly in analysis and number theory, and upon theoretical physics, especially quantum mechanics and elementary particle physics.